NSF Student Travel Grant for 2017 Conference on Computer Aided Verification

This travel grant provides supports for 15 US-based students to attend the 29th Conference on Computer-Aided Verification (CAV) to be held in Heidelberg, Germany, on July 24-28th 2017. CAV, one of the premier conference in formal verification, is dedicated to the advancement of the theory and practice of computer-aided formal analysis and synthesis methods for hardware and software systems. The conference covers the spectrum from theoretical results to concrete applications, with an emphasis on practical verification tools and the algorithms and techniques that are needed for their implementation. Conferences like CAV are a near-unique opportunity for graduate students to attend technical presentations, interact with the leading researchers in the field, and receive valuable feedback on their research.